Mathematical Sciences: Research Conference in Probability Theory

This conference will be held January 8, 9, 10, 1989 at the University of Southern California. Its focus is on several areas of probaility theory, including Markov processes, branching processes, percolation theory, interacting particle systems, and stochastic flows. These are areas in which Professor Ted Harris has done seminal work, and the conference will honor him for his contributions. The invited speakers include P. Baxendale, R. Durrett, D. Griffeath, R. Holley, H. Kunita, Y. Lejan, T. Liggett, C. Newman, P. Ney, F. Spitzer, and S. R. S. Varadhan. The conference organizer is Professor Watkins of the Mathematics Department of the University of Southern California. There is some participant support available.